Optoelectronic Node for Novel WDM/TDM Optical Interconnection Network

Proposal Number: ECS-9800401 Principal Investigator: Keren Bergman Title: Optoelectronic node for novel WDM/TDM optical interconnection network Abstract This proposal was an attempt to effectively utilize the immense bandwidth of optical fiber interconnects and minimize the high cost of E/O and O/E conversion by design a network for optical implementation that employs multiple node levels with a routing topology that has minimum logic at the node. The network based on the Data Vortex architecture has the property that all self-routing decisions of the data packets are based on a single logic operation (AND) at each node. The PI claims that it can scale to interconnect an ultra-high performance computing system in a massively parallel form while maintaining low access latencies. The proposed work is to construct such network node in a testbed environment using high speed WDM/TDM payload and lower speed header. The data remain all optical throughout the network, only being converted to electronic format via fast PIN diodes at the receiver end.